DIMEs: Immersing Teachers and Students in Virtual Engineering Internships

The Next Generation Science Standards (NGSS) outline the science competencies students should demonstrate through their K-12 years and represent a commitment to integrate engineering design into the structure of science education. However, achieving this new ideal of teaching and learning will require new curricular and pedagogical supports for teachers as well as new and time-efficient assessment methods. This project will provide such curricular and pedagogical support by developing and evaluating teacher-ready curricular Digital Internship Modules for Engineering (DIMEs). DIMES will be designed to support middle school science teachers in providing students with experiences that require students to use engineering design practices and science understanding to solve a real-world problem, thereby promoting a robust understanding of science and engineering, and motivating students to increased interest in science and engineering. The modules will also assess students' ability to apply their science knowledge in solving the engineering problem, thereby providing teachers with actionable data about the depth of their students' science and engineering understanding. The DIMEs will be environments where students work as interns at a simulated engineering firm.

The Digital Internship Modules for Engineering will provide immersive experiences that simultaneously serve as learning and assessment opportunities. DIMEs will assess not only whether students understand NGSS science and engineering concepts, but also whether they can use them in the context of real-world problem solving. Teachers will orchestrate DIMEs using a custom-designed teacher interface that will show student work, auto-generated assessments, and reports on each student's learning progress. This project will build on prior work on NSF-funded computer-based STEM learning environments called epistemic games. Epistemic games are computer role-playing games that have been successfully used in both undergraduate engineering courses and informal settings for K-12 populations to teach students to think like STEM professionals, thereby preparing them to solve 21st century problems. The project will create six ten-day activities, two each in Physical Science, Life Science and Earth Science units that are typically taught in middle school. An iterative research and design process is used to conduct pilot tests of the six DIMEs in local classrooms, field test a beta version of each DIME with 15 teachers and up to 1500 students in national classrooms, and then implement final versions of each DIME in research trials with 30 teachers and up to 3000 students in national classrooms. By bringing cutting-edge developments in learning science and undergraduate engineering education to middle school STEM education, the project aims to improve educational practice, and enhance assessment of learning outcomes in middle school science classroom settings.